Basic Research in Systems Theory

This research considers the development of control theoretic analysis and design techniques for linear and nonlinear deterministic systems. The basic goal is to develop a sound theoretical base for control system design techniques and obtain, wherever possible, bounds on achievable performance. Particular attention will be given to the development of stabilizing dynamic compensators for nonlinear plants. The techniques being used are highly mathematical, although the overall goal is realizable engineering control system design.